Mathematical Sciences: Projects in Modern Analysis

This award will support the research projects of a group of mathematicians whose work centers around operator theory and operator algebras. Some of the areas of investigation will be (i) multiplication operators on functional Hilbert spaces, (ii) polynomial hyponormality using multivariable techniques, (iii) construction of irreducible subfactors with index greater than four, (iv) invariant theory, Schur-Weyl duality, and tensor product structure of quantum groups at roots of unity, (v) dilation theory for algebras of operators and covariant systems, (vi) one-parameter deformations of generalized commutation relations, (vii) operator algebras generated by Toeplitz and singular integral operators with random symbol, and (viii) coordinatization techniques to analyze non-self-adjoint operator algebras. A central aspect of this research project is an investigation of Hilbert space operators. These objects can be thought of as infinite matrices of complex numbers but they often arise in a way more suited to various applications. In the research projects of these investigators a single operator is usually not the subject of study but rather large classes of operators called algebras. The structure of such algebras is one of the most intensively studied areas of mathematics.